Chemical Dynamics of Gas Adsorption and Desorption on Organic Sensor Films

The Analytical and Surface Chemistry Program of the Division of Chemistry at NSF supports the research program of Prof. Kummel of the University of California, San Diego (UCSD). Prof. Kummel and his students investigate how explosive molecules absorb onto organic films and change their electrical properties; the change in electrical properties is used to detect the presence of the explosive molecules thereby creating a sensor. The sensors are similar to the transistors which power computers but are made of organic materials instead of silicon because organic materials absorb gases from ambient air. The films developed at UCSD can identify peroxides; peroxide sensing is critical for the detection of improvised explosive devices (IEDs) as well as sterilization of surgical equipment, pharmaceutical supplies, and bio-decontamination. Using an array of organic sensor films, more exotic compounds can be detected including nerve agents and volatile organic compounds which are important in mold sensing. The project provides excellent training opportunities to graduate and undergraduate students in a scientific area of great significance to US national security.